Morehouse College DR K-12 Pre-Service STEM Teacher Initiative

Morehouse College proposes a research and development project to recruit high school African American males to begin preparation for secondary school science, technology, engineering and mathematics(STEM) teaching as a career. The major goal of the program is to recruit and prepare students for careers in secondary mathematics and science teaching thus increasing the number of African Americans students in STEM. The research will explore possible reasons why the program is or is not successful for recruiting and retaining students in STEM Teacher Education programs including: (a) How do students who remain in STEM education differ from those who leave and how do these individual factors (e.g. student preparation, self efficacies, course work outcomes, attitudes toward STEM/STEM education, connectivity to STEM/STEM education communities, learning styles, etc) enhance or inhibit interest in STEM teaching among African American males? (b) What organizational and programmatic factors (e.g. high school summer program, Saturday Academy, pre-freshman program, summer research experience, courses, enhanced mentoring, cyber-infrastructure, college admissions guidance, leadership training, instructional laboratory, program management, faculty/staff engagement and availability, Atlanta Public Schools and Morehouse College articulation and partnership) affect (enhance or inhibit) interest in STEM teaching among African American males?

Two cohorts of 40 students will spend six weeks in an intensive summer program with a follow-up Saturday Academy during their senior year before formally beginning their academic careers at Morehouse College. The program will integrate STEM education with teacher preparation and mentoring in order to develop secondary teachers who have mastery in both a STEM discipline as well as educational theory.

This pre-service program for future teachers will recruit 80 promising eleventh grade African American male students from the Atlanta Public School District to participate in a four-year program that will track them into the Teacher Preparation program at Morehouse College. The research will focus on the utility and efficacy of early recruitment of African American male students to STEM teaching careers as a mechanism to increase the number of African American males in STEM teaching careers.